Statewide Chemistry and Physical Science Courses by Satellite TV

The Center for the Liberal Arts, in cooperation with the department of Chemistry at the University of Virginia, plans a live statewide televised course for an estimated 300 high school teachers of chemistry on fourteen Saturdays from January to May l989, and a similar course for eigth grade physical science teachers in l990. The long range goal of this project is to increase the scientific literacy among students in Virginia schools through the increased science knowledge and heightened instructional and career awareness of their teachers. Modelled after a successful and innovative physics course broadcoast in l987, these courses will address the needs of the teachers for a sense of competence in subject matter, updated information in their field, mastery of demonstration methods and communication with other practitioners of their discipline. Entitled "The Chemical Web of Life on Planet Earth", the chemistry course will provide three hours of graduate credit, suitable for recertification purposes. The course will stress the dependence of terrestrial life on fundamental chemical processes, the syllabus will be based on responses to a needs assessment of the participating teachers. Activities will include lecture, demonstrations, video tours of active research laboratories and discussion with leaders in their fields. Teachers will meet in one of seven classrooms near their homes, where they will receive guidance from college-level instructors and interact with the lecturer and other participants through open microphones on their desks. During each three-hour session, one hour will be allotted to activities in the local classroom, where teacher will work cooperatively on problems related to the lectures and plan strategies for translating course content to their own classrooms. This should provide the opportunities for teacher networks to be established in very feasible geographical regions, as well as to provide access to the the university level staff. The interactive mode of this model has proven to be successful in the previous physics course. Outside funding from the University, industry and schools represents about a 10% ratio of the requested grant.